U.S.-Italy Cooperative Research: Regulation of Vitellin Polypeptide Processing During Yolk Utilization by Orthopter-an Embryos: A Biochemical & Morphological Investigation

This award will support collaborative research between Dr. John H. Nordin of the University of Massachusetts, Amherst, and Professor Franco Giorgi at the University of Pisa. The objectives of the project are to develop techniques for dissection and fixation of Blatella germanica eggs/embryos; to establish a procedure for injecting radiolabeled yolk granules into B. germanica eggs; to investigate temporal aspects of expression of Vt processing proteinases and the fate of Vt processing peptides in C. morosus and B. germanica embryos during early development; and to explore approaches for isolating vitellophages and characterizing their plasma membrane. The study is significant because it will increase our understanding of two "universal" constituents of insect eggs, yolk granules and vitellophages and because it addresses the fate of Vt processing peptides in the developing embryo. The research goal is to understand how insect Vt utilization is controlled at the cellular and molecular levels. The PI will interact directly for an extended period with a leading research group that is investigating similar aspects in a closely related orthopteran. Dr. Giorgi is an internationally recognized researcher in the field of insect vitellogenesis and embryology. Giorgi's group has studied embryo development of orthopteran stick insects, especially Carausius morosus, which shares a number of characteristics with B. germanica. Another benefit will accrue from employing electron microscopy and immunocytochemistry to advance the project. Overall, this project will provide an excellent opportunity to gain new insights into the principal investigators' respective experimental systems and for mutually beneficial scientific interaction.